Float Component of the 1992 North Atlantic Tracer Release Experiment

This proposal is a central element of the Tracer Release Experiment (TRE), a process study of the World Ocean Circulation Experiment (WOCE). The PI will release and track a suite of mid- depth floats. These will be released in conjunction with the release of measured amounts of a stable chemical species. At selected intervals, the distributions of the chemical will be measured. Over the duration of the experiment, the floats will be tracked to provide a continuous record of the tracer history.